Enhancing the Biophysical Component of the Physical Chemistry Laboratory

Increased numbers of chemistry majors seek courses and research with biological applications. The Department of Chemistry is responding by actively demonstrating the fundamental role of chemical principles in many life science applications by increasing the exposure of undergraduates to the chemical basis of selected biological phenomena. This project presents physical chemistry laboratory students with key techniques used in studying the physical behavior and properties of biological macromolecules. Fluorescence spectroscopy allows examinination of biological systems from a physical chemistry perspective. The initial set of experiments being introduced include fluorescence anisotropy measurements to yield membrane micro-viscosity, a steady-state fluorescence quenching study of the kinetics of protein denaturation, and an investigation of the thermodynamics of formation of several B-cyclodextrin inclusion complexes. These curricular revisions are serving as an introduction to elements of biophysical chemistry for all chemistry majors.